The Kinematics of Continental Collisions, 1: Global Positioning System Geodetic Survey of Nepal

This award supports two projects to use GPS geodesy to determine the vertical and horizontal positions of survey markers spaced at crucial locations across the active Himalayan deformation that marks the collision zone between the Indo/Australian Plate and the Euro/Asian Plate. The first of these projects is to conduct measurements in Nepal, the second to undertake measurements in Pakistan. The PIs will remeasure the GPS control points after a period of several years to monitor their relative motions, and thereby determine the strain field along the two traverses. The projects are being established as long-term collaboration between v.s. scientists and counterparts in Nepal and Pakistan.